U.S.-China Cooperative Research: Formation and ThermodynamicStability of Metastable Phases in Selected Metals and Alloy Systems

9542014 Jiles This award provides funding for an undergraduate research student to obtain direct research experience in a laboratory environment while conducting work on the project "Assessment of Barkhausen effect measurements for evaluation of ground steel components" in Iowa State University's Industry/University Cooperative Research Center for Non-Destructive Evaluation. The Program Manager recommends Iowa State University be awarded $5,000 for one year with funds provided by the Women, Minorities, and Disabled Engineering Research Assistants Program.